Causes and Consequences of the Employer's Decision to Operate During Strikes

The struck employer faces a choice between halting operations or continuing operations by subcontracting the bargaining units' work, assigning the striking employees' work to other employees, hiring replacements for the striking workers, or some combination of these three strategies. Although there is a considerable body of research investigating the causes and consequences of economic strikes, there has been little empirical research examining either the determinants or the consequences of the firm's decision to operate during strikes. Dr. Gramm plans to explore the feasibility of conducting a project to analyze the determinants of the struck employer's choice to operate during a strike and to evaluate the consequences of the choice. Her study includes the development of theoretical and econometric frameworks within which to examine the reactions of company management to economic strikes and the effects of choices such as subcontracting, closing down, hiring new workers, and reassigning work. Also, a pilot study of 100 strikes is planned involving content analyses of archival data sources and the administration of questionnaires. Finally, the preparation of a proposal for a larger scale study is contemplated. It is timely to prepare a plan to conduct empirical research on the determinants and consequences of the firm's decision to operate during strikes because there has recently been an increase in management's exercise of its right to operate during strikes, and new strike strategies have been developed. The project has potential to illuminate our understanding of the interaction between labor and management in a dispute situation and also of enhancing our knowledge more generally of bargaining behavior.